Technological Engagement in the Mathematics Curriculum

9452523 Sherwood The mathematics faculty, supported by Penn Valley Community College, is embarking on a general mathematics curriculum reform effort in response to the changing needs of its clientele, the community, and its transfer program. Students entering the mathematics curriculum at each level are being provided with new numeric, geometric and other mathematical experiences. The community and transfer program demand graduates possessing greater problem solving and communicative skills than is possible by the traditional curriculum. To address these concerns the mathematics faculty is establishing a computer laboratory which will provide the needed experiences in a problem solving environment.